Recent Advances and New Directions in the Interplay of Noncommutative Algebra and Geometry

This NSF award supports participation in the international conference
``Recent Advances and New Directions in the Interplay of Noncommutative
Algebra and Geometry,'' which is planned for July 13–17, 2020, at the
University of Washington in Seattle, Washington. It is expected that
80–100 participants from all over the world will attend. Mathematics
is the study of patterns. Frequently, such patterns are described via
systems of equations. Systems of polynomial-style equations and their
solutions play a critical role in almost every scientific field, such
as statistical mechanics, elementary particle physics, quantum mechanics,
robotics, crystallography, and networking. Often, the solutions cannot
be found by experimentation, and often they are not numbers but are
functions (e.g., differential operators or matrices), and so, in general,
they do not commute. The field of noncommutative algebra is the science
behind seeking methods that find all solutions to any system of
polynomial-style equations in noncommuting variables, and the planned
conference will focus on recent research activities that use different
types of geometric techniques in noncommutative algebra. The conference
will consist of survey talks, research talks, a poster session, a career
panel, a public lecture, and research discussions. The research talks
will feature 50-minute, 25-minute, and 10-minute lectures in order to
accommodate researchers at various career stages. The 10-minute talks
and poster session will take place early in the conference in order to
facilitate maximal discussion time during the conference between
early-career researchers and senior researchers. Funding will be
prioritized for junior participants and for researchers from groups that
are traditionally under-represented in the mathematical sciences.

The purpose of the planned conference is to generate new research in
noncommutative algebra and related areas, while contributing to the
development of the research workforce in noncommutative algebra. This
major international conference will cover several topics of active
current interest in noncommutative algebra, with broad connections to
combinatorics, geometry, mathematical physics, number theory, and topology.
It will emphasize recent exciting developments and emerging future
directions, particularly in such areas as noncommutative algebraic geometry,
Artin-Schelter regular algebras, Calibi-Yau algebras, Hopf algebras and
quantum groups, category theory, and homological techniques. The conference
will bring together the leading experts from different specialties within
noncommutative algebra, encouraging interactions between participants
from a broad range of perspectives and approaches. Further information
can be found at the conference website: https://sites.google.com/view/ndna2020/home